RESEARCH INITIATION: Coupled Nonlinear Oscillator - A Modelfor Flow Induced Vibrations of Heat Exchanger Tube Rows

This study concerns a fundamental investigation in thermal systems. Specifically, a mathematical model is being developed for heat exchanger tubes excited by a steady cross flow.